ROW: Photoadaptation in Chloroplast-Retaining Ciliates

This investigation focuses on the adaptations ciliates can achieve by acquiring chloroplasts and utilizing their photosynthetic capabilities within the ciliate cell. Many planktonic ciliates retain a portion of the chloroplasts from the algal cells they ingest. In some, these retained chloroplasts continue to carry out carbon assimilation at rates comparable to the intact algae. This research focuses on how ciliates regulate the photosynthetic production of retained chloroplasts and how important this energy source is for the microzooplankters. As ciliates can be very important microzooplankton components of some aquatic ecosystems, this adaptation may greatly affect the production ecology of these systems.